The Woods Hole Center for Oceans and Human Health

ABSTRACT OCE-0430724

NSF-NIEHS Research Center of Excellence in Oceans and Human Health at the Woods Hole Oceanographic Institution

With support from this award, researchers at the Woods Hole Oceanographic Institution (WHOI) will establish an NSF-NIEHS Center for Oceans and Human Health (COHH) in Woods Hole, Massachusetts. This will be a multi-institutional Center, with a mission to be a focal point for research and communication on issues at the intersection of oceanographic, biological and environmental health sciences, to improve the public health. The Center will involve investigators and facilities of the Woods Hole Oceanographic Institution, the Marine Biological Laboratory, and the Massachusetts Institute of Technology. The Woods Hole COHH will address fundamental issues of the distribution of biological agents with potential human health consequences, in the theme area of the temperate coastal ocean, including bays, harbors and estuaries. Within this geographic theme, research projects in the Center will focus on harmful algal blooms and on human pathogens and infectious agents, in both cases with focused and complementary physical oceanographic studies and biological studies of causative agents

The Center will comprise an Administrative Core and four Research Projects. The Research Projects will be coupled with an advanced Genomics Facility Core, establishing a combination of unusual strength, and supplemented by a Pilot Project program. The proposed Cores and Projects are: an Administrative Core; Project 1. Alexandrium Population Biology in the Gulf of Maine; Project 2. Hydrodynamic forcing of Alexandrium population biology; Project 3. Human Pathogens and Coastal Ocean Processes.; Project 4. Microecology; and Evolution of Two Marine Pathogens; Genomics Facility Core; and a Pilot Projects Program.

Broader Impacts: The establishment of a COHH at WHOI is expected to have a number of broader impacts. It will compliment an already strong set of inter-institutional research and educational alliances between WHOI and other organizations involved in marine science. The Center will also focus special attention on an aspect of ocean sciences that has been present at the institution for several decades but with the added dimension of being directed toward interaction with a broader segment of the biomedical community. This center is also expected to play a significant role in the support and training of graduate students and postdoctoral associates for careers related to the oceans and human health.